SBIR Phase I: Transparent Antenna Technology for Next Generation Wireless Consumer Devices

The broader impact/commercial potential of this project is that it offers low cost, and compact
tablet/mobile devices with better wireless connectivity and increased battery life. Lower cost of these
devices will enable their widespread use in the society and enable use of broadband services with higher
efficiency and better connectivity. The transparent antenna technology offers a platform on which
several other applications can be built. For instance, compact health monitoring sensors can be
integrated with wireless capability by integrating antennas on their displays. This technology also will
also improve wireless capability of wearables as they have very limited real estate for antennas.

This Small Business Innovation Research (SBIR) Phase I project aims to develop transparent antenna
technology for wireless consumer devices. This SBIR project will advance our understanding of
interactions between touch sensor and transparent antennas and enable development of multifunctional
touch sensors that not only operates as a touch sensor but also a transparent antenna as
well. A very comprehensive research approach will be undertaken in Phase I. Namely, in addition to
evaluating performance of the antenna technology in the presence of touch sensor, performance of
touch sensor in the presence of transparent antennas will also be characterized to ensure that the
proposed multi?]functional touch sensors meet the requirements of wireless consumer devices such as
tablets and mobile phones.